Evolution of Deep Sea Molluscs II

The first explicit model of population differentiation and speciation in the deep-sea fauna, the depth-differentiation hypothesis, was formulated in the early 1990s. According to this theory, the potential for population differentiation decreases with depth because the bathyal zone (200- 4000 m) has stronger selective gradients and more opportunity for geographic isolation to impede gene flow than does the more extensive and environmentally uniform abyssal plain (>4000 m). To determine whether depth-related variation is genetic, and therefore a consequence of evolutionary change, the PI has developed new methods to extract and sequence mitochondrial DNA from archived deep-sea molluscan species collected in earlier expeditions that had been fixed in formalin and preserved in alcohol. These preliminary studies supported the depth-differentiation hypothesis. They also revealed the limitations of using preserved material. For this project, the PI describes 2 hypotheses about evolution in the deep sea that emerged from the previous work: 1) The depth differentiation hypothesis suggests population divergence decreases with depth; and 2) A strong break in population structure at 3300 m might represent an unrecognized phylogeographic barrier.

The PI will test each of these hypotheses with multiple independent loci using deep-sea protobranch bivalves and recently developed statistical phylogeographic and phylogenetic models. The aforementioned work relied on formalin-fixed tissues, restricting analyses to a single locus (mtDNA). Nuclear loci are essential as independent measures of population structure, gene flow and historical influences, but are also critical to establish whether some of the remarkable divergences the PI documented represent cryptic species. The new material collected during the previous round of funding allowed the PI to develop the necessary nuclear loci and assess their utility for this work. The primary focus of this proposal is to use these new markers to test each of these hypotheses and distinguish intra- versus inter-specific variation.

Intellectual Merit: The deep-sea supports one of the most diverse and unique marine communities, the evolutionary and historical development of which is virtually unknown. The proposed research will contribute very significantly to answering the two most basic questions about evolutionary diversification in this vast and remote environment: Where does it occur, and how? Analysis of the strong bathymetric divergence in Deminucula atacellana will provide the first detailed investigation of potential incipient speciation in a deep-sea organism (apart from reducing environments) and possibly identify the scales and mechanisms involved. It will also create a solid conceptual and methodological context for future evolutionary studies in the deep sea and lay the groundwork for understanding bathymetric and geographic variation at much larger scales (e.g., among ocean basins or pan-Atlantic).

Broader Impacts: The research program will train undergraduate and graduate students and public school teachers. At UMass-Boston, students and faculty have outstanding opportunities to be directly involved in science education and public outreach at all levels. Currently, the biology Department has an NSF-Research Experiences for Undergraduate program, an NIH Initiative for Maximizing Student Diversity (IMSD) Program, a Bridges to Baccalaureate Program, and an NSF Undergraduate Mentoring in Environmental Biology program. All are oriented toward underrepresented minorities, and students from each of these initiatives have and will continue to be been involved in the PI's research. The campus has a Boston Science Partnership Grant to upgrade high school science curricula and is a Center of Ocean Science Education Excellence to foster public awareness of ocean science. The PI will recruit undergraduates, graduate students, and teachers into this research program, and topics in deep-sea biology will be incorporated into university and high school curricula. The research also has broad relevance for conservation and sustainable development of the deep-sea ecosystem. Genetic population structure is a crucial component of biodiversity, and has important implications for extinction potential from deep-sea exploitation.